Advanced Research Workshop on "The Role of Fluids in Sediment Accretion, Deformation, Diagenesis, and Metamorphis at Subduction Zones"

A workshop on the role of fluids in sediment accretion, deformation, diagenesis and metamorphism at subduction zones will be held in October 1988 at Il Ciocco, Italy. The workshop will focus on (1) sea floor manifestations of fluid flow; (2) sources and evolution of fluids; (3) geometry of flow and physical properties; and (4) the effects of fluids on tectonics in sedimentary accretionary prisms. A major objective of the workshop is to develop scientific plans for an international program of cooperative research on the subject. Participants to the workshop will be invited experts, recommended by the organizing committee. %%% The problem of fluid flow in accretionary sediment environments is a subject of intense study by earth scientists today. These environments occur at a number of places around the world, in a variety of settings. The material in accretionary prisms is incorporated into continental rocks and not much is known about this process, nor about the role of water in deformation and metamorphosis of them. International coordination and cooperation are needed to develop the tools, facilities and ideas to study these problem efficiently and effectively. This workshop will help these planning and coordination efforts.